POWRE: Systematic Mosaicism in Armillaria Gallica

Peabody

POWRE Proposal #0074779 Abstract: Genetic Mosaicism in Armillaria gallica

Armillaria gallica is an ecologically variable basidiomycete fungus that
functions as a saprophyte and pathogen of stressed trees in many of the
world's boreal and temperate forests. The PI recently reported that
basidiomes (mushrooms) of this fungus can be a genetic mosaic (Fungal
Genetics and Biology, 2000, vol. 29). This was demonstrated by isolating
ten cells from a single basidiome and genotyping each for six different
nuclear loci. Nine different genotypes were recovered for the ten cells
that were assayed, indicating that this basidiome was a genetic mosaic.
Fifteen cells isolated from another basidiome of the same species produced
only one genotype when analyzed for the same six loci, indicating that this
basidiome was not a genetic mosaic, at least for these six loci.

The goal of this NSF POWRE-supported study is to better understand the
phenomenon of genetic mosaicism in A. gallica's life cycle and the
contribution mosaicism makes to this species' ability to function
successfully in forest soils. To accomplish this, the PI will investigate
(1) How common and geographically widespread genetic mosaicism is, (2) How
the mosaic condition develops, and (3) How mosaicism affects the ability of
A. gallica to infect plant hosts and to grow under ecologically variable
conditions.